AIT (U.S.) - CCNAA (Taiwan) Cooperative Research: Synthesisof Polymethylene Thin Films

This is a one year cooperative study proposed by Dr. David Allara, the Pennsylvania State University, and Professor Yu-Tai Tao, Institute of Chemistry, Academia Sinica supported by the AUT (U.S.) - CCNAA (Taiwan) Cooperative Science Program. This project proposes to study the polymer chain structures at polyethylene interface using new methods of infrared spectroscopy, x-ray excited photoelectrons, and ion mass spectrometry. The approach is a new one using state of the art techniques. The scheme of crystalline polymer film formation has important applications for adhesion and surface modification. Dr. Allara is a physical chemist and Dr. Tao of the Institute of Chemistry, Academy of Sinica, Taiwan, has expertise in chemical synthesis. The collaboration is mutually beneficial and the results can advance our understanding of the structures and interactions of thin polymer interfaces.